Computational Neural Science on the Connection Machine: Adaptative Map Algorithms for Real World Problems

One important aim of Computational Neural Science which studies information processing brains and adopts neural parallel computational strategies to digital information processing, is to narrow the gap between the high density of neurons and synapses found in brains and the low density in today's computational models. In this respect the Connection Machine, a massive parallel computer with a large storage capacity per processor, provides an ideal research tool. The researchers will exploit this new machine to narrow the gap between current models of the brain and reality. This work will be highly computational in nature, but it will bring together concepts and techniques from disparate disciplines, names Neurobiology, Computer Science, and Computational Physics.